Cryopreservation of Drosophila melanogaster embryos

The ultimate goal of this project is to develop a protocol for the cryopreservation of Drosophila melanogaster embryos. In our studies to date, we have taken a mechanistic approach in investigating three strategies of cryopreservation; supercooling, conventional cryopreservation, and vitrification. Of the three, only vitrification is appropriate because it allows for ultra-rapid cooling rates to minimize injury associated with the extreme subzero chilling sensitivity of the embryos. With this approach, we have attained 20.0 10.3% hatching of eggs following recovery from liquid nitrogen. More important, in recent studies 3% of the surviving larvae developed into fertile adults. For this proposal, studies will first focus on modifications of the culture conditions to increase the number of larvae that develop into adults by minimizing larval desiccation, adding ecdysteroids that control sclerotization and pupariation, varying temperature, and modifying the culture medium. A systematic analysis will then be conducted on the effects of each step of the vitrification procedure on larval development, pupariation, and adult eclosion, including cryoprotectants used for loading, loading time, dehydration time, different vitrification solutions, and cryogenic treatment. The results of this analysis will be used to optimize the vitrification procedure with respect to larval development, pupariation, and adult eclosion following recovery from liquid nitrogen. For this work, a multidisciplinary team of cryobiologists, a biophysicist, an engineer, and a Drosophila geneticist has been assembled. A successful increase in the number of fertile adults produced by this cryopreservation technique will significantly reduce the costs of maintaining Drosophila stocks. Drosophila now have to be maintained as living cultures in order to keep the myriads of genetic types available.